NSF Young Investigator: Integrating Photodetectors with Optoelectronic Devices Fabricated by Liquid Crystal Modulators into VLSI Circuits

Sophisticated optoelectronic devices will be fabricated by integrating photodetectors and liquid crystal modulators into VLSI circuits. These devices will be used as optical neuron arrays in self- aligning optical learning systems that use repetitively exposed photorefractive dynamic volume holograms to adaptively classify input data applied to the network.